Workshop to Select a Fracture Toughness Test Standard for Concrete

Abstract:

A 3-day workshop on fracture toughness test standardization for
concrete is planned. It is now imperative that experts meet to select a single
standard. The purpose of the workshop is to study a number of fracture toughness test
proposals, and to select a proposal to recommend to American Society for
Testing of Materials for adoption. We will invite 15 researchers from around
the world, and will make every effort to include qualified women and
minorities.